Kinetics and Mechanisms of Rapid Reactions in Solution

In this project in the Inorganic, Bioinorganic, and Organometallic Program of the Chemistry Division, Margerum will continue his studies of the rates and mechanisms of rapid reactions in aqueous solution. A number of these reactions are of importance in environmental chemistry. An apparatus that allows the study of reactions that are over in a few millionths of a second will be used and improved in this work. Mechanistic studies of rapid non-metal redox, hydrolysis, and disproportionation reactions of halogens and their compounds with oxygen, nitrogen, and sulfur will be examined. The importance of halogen-cation transfer mechanisms, the correlation of reactivities with nucleophilicity, and the determination of the role of acid-base catalysis will be emphasized. The pulsed-accelerated-flow apparatus will be used to monitor the reactions; this instrumentation was developed by the Margerum group, and will be improved by position-resolved observation. The latter will incorporate charge-coupled device technology, accelerated flow, and orthogonal observation to expand the ability to study rapid multi-step and other complex reactions in solution.